Evaluating Astronomy Learning in Immersive Virtual Environments

The goal of the Astronomy Learning in Immersive Virtual Environments
(ALIVE) Project is to evaluate the effectiveness of the use of
computer-generated immersive virtual environments (VEs) for teaching
astronomical concepts in college introductory astronomy classes. The
study will find optimal learning modes for astronomy, and quantify the
benefits that immersive VEs may have for enabling spatial learning. The
experiment will compare the advantages of immersive VEs over their
non-immersive counterparts.

ALIVE establishes a collaboration between a four-year urban university
and a regional science museum. The study will take place in the
introductory astronomy classes at the Metropolitan State College of
Denver (MSCD), using the digital full-dome theater at the Denver Museum
of Nature & Science (DMNS). The three-year study will use MSCD's
diverse urban student population as test subjects, and will be broken
up into two stages. Phase I will develop the materials for the
experiment, while the experiment and follow-up analyses will take place
in Phase II. The study will use interactive, real-time software
developed at the Denver Museum of Nature & Science (DMNS). Astronomy
class students at the Metropolitan State College of Denver (MSCD) will
be surveyed to determine what astronomical misconceptions they already
possess. From these frontend evaluations, learning modules using VE
simulations will be developed to supplement the introductory astronomy
curriculum. In the experiment, pre-course, post-course, and curriculum
tests will be used to determine the efficacy of immersive
visualizations presented in DMNS' Gates Planetarium versus the same
visual simulations in non-immersive settings (i.e., shown on a flat
screen in a normal classroom), as well as a control case using
traditional classroom multimedia. The project will stimulate and
support the development of astronomy education modules used in
multi-user facilities such as smart classrooms and digital planetaria.
Such modules can also be used for informal science education in
immersive digital theaters. An important sub-study will look explicitly
at gender-related trends, since there is evidence that women exhibit
greater gains than men in certain virtual navigation tasks when using
an immersive VE. These results may have the
potential to increase female participation and retention in the
sciences. These activities are strongly aligned with the goals of NSF
GPRA Strategic Plan 2001-2006.